CAREER: Architectural Support for Software Cache Management

9734026 Reinhardt The boundary between hardware and software in computer system design constantly changes with advances in technology. This project includes both research and education at this boundary. Research will include new techniques for software cache management: cache hardware that permits additional software control, instruction pipeline enhancements that enable low-overhead execution of cache management software, and software implementations of new cache management policies. Education at the hardware/software boundary will include introduction of field-programmable gate arrays (FPGA) in the undergraduate laboratories, involvement of undergraduates in research, and incorporation of recent research into the graduate curriculum. ***